Scanning Electron Microscopy for Undergraduate Science and Engineering Education

Students in biology, electrical engineering and other fields of study learn to use the Scanning Electron Microscope (SEM) for measurements related to their major area of study. A formal course that teaches students the principles of operation and the capabilities of the SEM as well as the procedures for using the instrument is offered on a regular basis. The particular instrument has several features that allow measurements not possible with instruments not possessing these features. After completing the course, the students have access to the SEM for individual project work. The grantee provides funds for this project that are an equal match for the NSF award.